MRI-R2: Acquisition of a Mapping micro-XRF Spectrometer for Art and Cultural Heritage Materials Research and Education

0958786
Trentelman
The Getty Conservation Institution

Acquisition of a Mapping micro-XRF Spectrometer for Art and Cultural Heritage Materials Research and Education

Technical Summary:
This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

The scientific study of works of art and other cultural heritage materials offers insight into past cultures, provides a means to rediscover historic technologies, and improves our ability to preserve precious objects for future generations. Funds from this instrumentation grant will support the acquisition of a micro-X-ray fluorescence (XRF) spectrometer with high spatial resolution, line and area element mapping capabilities, and helium purging to enhance the detection of low-Z elements. Designed for the in situ examination of works of art, this instrument will complement and enhance existing analytical capabilities of the Getty Conservation Institute (GCI) Collections Research Laboratory for conducting research into the composition, structure, and behavior of the materials comprising works of art. Specifically, the addition of the proposed instrument will 1) expand the scope of works of art which can be studied to include inhomogeneous or finely detailed objects through the use of micro-focus X-ray optics; 2) assist in the discovery of fundamental phenomena relating to the historic production of materials through the enhanced detection of low-Z elements; and 3) open new areas of research through the generation of spatially resolved elemental information. The portability of the instrument will facilitate collaborative research between the GCI and other museums and cultural heritage institutions; in addition, collaboration with UCLA will provide education and training opportunities for post-doctoral fellows, interns, and graduate/undergraduate students. The fundamental research that this instrument will allow has the potential to impact the work of chemists and material scientists, as well as professionals in the related disciplines of art history, archaeology, and art conservation. Furthermore, the inclusion of results in museum gallery displays, exhibition publications and public lectures will serve to increase public awareness of - and interest in - science.

Layman Summary:
This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

The preservation of works of art and other cultural heritage artifacts is important not only because of their intrinsic beauty and/or historical significance, but also because these objects contain material evidence about the people, societies, and technologies that created them. Scientific analysis can uncover this evidence, which may change how we understand, interpret and care for art. Because of the precious nature of these objects, removing samples from them for analysis is usually not permitted, and so non-invasive techniques are employed whenever possible. X-ray fluorescence (XRF) is one such non-invasive technique. Using a thin beam of X-rays to analyze a small area on a work of art, XRF can identify the individual elements present, from which, for example, the specific pigment used to color a paint may be deduced. XRF has been employed successfully for many years in the study of works of art, but until now its use has been limited to the examination of areas at least a quarter inch across. The proposed instrument - a mapping micro-XRF spectrometer - is the latest development in XRF technology. Capable of probing on a microscopic scale, this instrument is also able to raster the X-ray beam over a surface, generating maps showing the locations of each element. For example, the pigments used to paint individual features in the tiny faces frequently found in manuscript illuminations can be characterized using this instrument. These capabilities will significantly enhance the ability of scientists in the Getty Conservation Institute Collections Research Laboratory to contribute to an understanding of artist's materials and methods, and assist art conservators in developing preservation strategies. Furthermore, because the instrument is portable, it can be taken to local cultural heritage institutions and universities for research and the training of students. In addition, results generated using this instrument will be incorporated into museum gallery displays, exhibition publications and public lectures will demonstrate how science can increase our understanding, appreciation, and enjoyment of art.